SGER: Comparing Assessments of National Position in Key Science and Technology Fields

9618668 Mogee The proposed project addresses the question of the replicability of assessments of relative national position in science and technology (S&T) by comparing recent foreign and U. S. forecasting reports to see whether assessments of the relative standing of countries in key S&T fields are consistent across the studies. Particular attention will be paid to whether other countries are reaching the same assessments of U. S. relative position in key S&T fields as reached by U. S. study efforts. This approach takes advantage of studies that have already been done, conducted by different people and using a variety of methods. The research is expected to result in a better understanding of the comparability of recent national technology forecasting and assessment reports, the consistency of their assessments of national technological positions, and how these assessments compare with a quantitative indicator based on international patent data. Of particular interest from a science and engineering indicators perspective will be a comparison of the critical S&T fields identified in the reports of different nations, a comparison of the relative position of the U. S. key fields as assessed by different countries, and a comparison of this ranking with a ranking based on international patent data. This information will increase understanding of the quality of the assessments and the confidence that can be placed in them. ***